Novel Method for Spectral Study of Random Schroedinger Operators in Higher Dimensions.

Manufacturing new materials with prescribed properties plays an increasingly important role in advancing modern technologies, including electronics, energy storage, and next generation displays. Solids with disordered and aperiodic atomic structures (e.g. alloys, glass, rubber) allow for special features such as the capacity to transform from an electrical insulator to a conductor. Aperiodic solids, such as quasicrystals, are found in a wide range of materials: organic and inorganic compounds, minerals, metallic alloys, and even some proteins. A detailed and precise theoretical explanation of the inner structure of these solids is necessary for manufacturing materials with prescribed special features. This project will develop novel quantum mechanical analysis techniques for studying the properties of disordered and aperiodic solids. These novel approaches are expected to further have relevance for a broader range of challenges in mathematics and physics. Both graduate and undergraduate students will be trained in this research area.

The investigators will develop novel analysis techniques for studying the Schrödinger operator in three dimensions at high energies which will be used to analyze the density of states of disordered solids. They intend to demonstrate that the density of states of this operator is analytic in the high energy region with probability one. Spectral properties of aperiodic systems will also be analyzed in higher dimensions, in particular, addressing the Cantor structure of the spectra. The work will also include an application of Raleyigh-Schrödinger perturbation theory, aiming to better understand the fundamental physical nature of electric conductivity. The analyses will combine powerful tools from spectral theory, the theory of partial differential equations, probability, complex analysis and others.